PATH: Modeling Adoption and Diffusion of Residential Construction Innovations

ABSTRACT
0533288
Koebel
The Residential Technology Diffusion Modeling project builds on past research to develop adoption and diffusion models for product and process innovations that incorporate the key dimensions of time, space, product characteristics, decision factors, adopter characteristics, supply-chain characteristics, market characteristics and consumer characteristics. The research integrates adoption and diffusion as interdependent processes. The research employs a unique data set developed by pooling multiple years of the Builder Practices Survey (BPS) conducted by the National Association of Home Builders Research Center. The research can contribute to achieving national goals for improving the efficiency, sustainability, and affordability of housing production as identified in PATH and Build America.